Developing Integrated Elementary Science, Engineering, and Language Arts Curricula Aligned with Next Generation Science Standards

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

Developing Integrated Elementary Science, Engineering, and Language Arts Curricula Aligned with Next Generation Science Standards is an exploratory project to conduct a study to develop and field-test curricula integrating science, engineering, and language arts at the elementary level. Research and Curriculum Development team consisting of master elementary science teachers, university professors including science, engineering, and science teacher education faculty, and a science education post doc or graduate student will engage in developing the Next Generation Science Standards (NGSS) aligned curricula integrating science, engineering, and language arts, and publishing STEM education research. The importance of this project will be the development of curricula integrating science, engineering, and language arts at the elementary level. Lesson plans or teaching activities in the integrated curricula will be written in practitioner article format. In the NGSS the engineering design is raised to the same level as scientific inquiry and included as a vital element of science education. This integrated approach aims to provide three-dimensional learning experience as specified in the NGSS to elementary students while meaningfully integrating engineering, science, reading, and writing through real life engineering design problems. The NGSS aligned curricula that will be developed in this project can also be used in other states that adopted the NGSS.

An Integrated curriculum for grades 1-2 will be developed in year 1. In year 2, the project will develop a curriculum for grades 3-5. Each year, the project will develop and field-test a new curriculum, and provide professional development organized around the integrated curriculum to 20 elementary teachers at the Clark County School District in Las Vegas, Nevada.